SGER: Coping with the Southern California Firestorms: Immediate Responses and Predictors of Adjustment

9403386 SILVER Abstract Although a great deal of research has addressed how people cope with traumatic life expreiences, little is known about the interaction and development of cognitive, social, and emotional responses to trauma over time. This research will document the variation in early response to a traumatic event and identify the early predictors of long-term adjustment to trauma. Victims of the Southern California firestorm in Laguna Beach and Malibu were interviewed within 48 hours of their return to their homes post-evacuation. Three follow-up assessments of the participants will be conducted, with the final data to be collected 6 months post-trauma. This research will represent the first attempt to recruit and follow disaster victims longitudinally. The findings of this study will contribute to a current on-going debate about patterns of coping with traumatic life events.